MIT/WHOI Joint Program Graduate Research Traineeships in Coastal Ocean Processes

GER-9454129 Woods Hole Oceanographic Institute Farrington ABSTRACT We propose to increase and enhance the interdisciplinary training and graduate education in coastal ocean processes within the MIT- WHOI Joint Program in Oceanography nd Applied Ocean Sciences and engineering. The traineeship program will consist of an introductory overview summer prior to the first academic year semester during which trainees will be introduced to the broad range of oceanography and ocean engineering research. The first summer includes participation in a ten day cruise, and specific seminars by faculty involved in interdisciplinary coastal ocean research. Trainees will enroll in the existing normal X of graduate courses in oceanography or ocean engineering to gain a broad education in oceanography or ocean engineering and an in- depth education in their specialization. An intensive graduate level seminar offered each year between the fall and spring semesters will provide a more detailed in-depth introduction (for first year students) and progressively more intense involvement (for second through fifth year students) in interdisciplinary coastal ocean research. Trainees will undertake PhD thesis research within an interdisciplinary context. A Science-Policy- Management Seminar for trainees who have advanced to PhD candidacy will involve faculty of the Joint Program and external experts active at the science-policy-management interfaces.